Probalistic Networks for Automated Reasoning

This is the first year funding of a three year continuing award. In this project, the PI will build upon his prior NSF-funded work to develop computer systems capable of operating autonomously in dynamic and uncertain environments. Specifically, the research will focus on three major themes: Qualitative planning under uncertainty using causal and counterfactual relationships; Automatic generation of natural language explanations of actions, recommendations, and unexpected eventualities; Learning causal structures from spontaneous changes, to facilitate predictions and decisions in data-intensive applications.